A Few Topics in Classical Analysis

Proposal Number: DMS-0139008
PI: Dmitry Khavinson

ABSTRACT

The work described in the proposal concerns several topics
in Classical Analysis: approximation theory, several complex
variables, miscellaneous problems on complex polynomials and
classical operator theory. The most central questions for the
project are: uniqueness of best approximation by harmonic
functions in the supremum norm in dimensions three and higher
(the two-dimensional case has been recently settled by the PI
and H.S.Shapiro), sharp estimates relating to multidimensional
analogs of H. Bohr's phenomenon for power series, counting
zeros of complex-valued harmonic polynomials, Agler-Cole-Wermer
interpretation of Ando's theorem in C^2 and, finally,
understanding the spectral picture of the celebrated double
layer potential operator -a topic going back to the pioneering
work of I. Fredholm.

Most of the questions in the project are rather simply stated
and, accordingly, will attract a fair number of graduate
students and young researchers. The problems are also open-ended
and suggest several new paths of investigation in these
classical areas away from the well traveled tracks. The
investigations undertaken in the project have well-defined
applications to Mathematical Physics (Potential Theory),
Applied Mathematics (polynomials, special functions) and
Numerical Analysis (explicit solutions of some of the most
important boundary value problems). The project entails
active involvement of undergraduate and graduate students at
all stages of the project and, via local network of workshops
and seminars for teachers, to disseminate some of the more
elementary off-beats of the proposed work among high school
students interested in science.